U.S.-Brazil Workshop on Bayesian Inference in Statistics and Econometrics, Rio de Janeiro, July 16-20, 1990

This award supports an international workshop on econometrics and mathematical economics to be held in Rio de Janeiro, Brazil from July 16-20, 1990. The U.S. organizer is Arnold Zellner of the University of Chicago and his Brazilian counterpart is Ruben Klein of the National Laboratory for Scientific Computing in Rio. The participants will consist of statisticians and econometricians from the U.S., Brazil and other countries. Thirteen will attend from the U.S. while nine or more will come from Brazil, three from Mexico and one from Venezuela. This workshop will be held just before the annual meeting of the Brazilian National Symposium on Probability and Statistics and some of the attendees at that meeting are expected to participate in the workshop. The main topic of the workshop will be Bayesian inference and decision analysis techniques. Research papers will be presented, affording the participants an excellent opportunity to learn about current applied and theoretical research in such topics as: Bayesian decision theory and applications, time series analysis, spatial statistics, learning models and model selection techniques, computer programs and comparisons of Bayesian and non-Bayesian approaches. Applications to be covered include analysis of spatial and time series data, forecasting problems, financial economic analysis and firm decision problems. Some research contacts have already been established among North, Central and South American Bayesian researchers. This workshop will strengthen these contacts and promote further joint research in this timely area.